Travel to the IVth International Conference on Fundamentals of Adsorption, Kyoto, Japan, May 17-22, 1992

The principal investigator will attend the IVth International Conference on Fundamentals of Adsorption, Kyoto, Japan, May 17-22, 1992, to present a paper entitled, "Effect of Combined Adsorption and Adsorption in Migration of Soil Contaminants." This paper proposes a novel approach to understand and analyze quantitatively the movement of soil contaminants in partially-wet soils. While in southern Japan the Principal Investigator will also visit research colleagues at Yamaguchi University, Kumamoto University, and University of Tokushima to discuss adsorption-desorption processes that apply to environmental and separations engineering. A report of this trip will be submitted to the Interfacial, Transport and Separation Processes Program of the National Science Foundation.